Engineering Research Equipment Grant: A Gas ChromatographicSystem for Complex Mixtures from High Temperature, Heterogeneous Hydrocarbon Processing

Two gas chromatographs systems are to be purchased, one with conventional detectors for the polar and nonpolar noncondensibles, and the second with mass specific detection (GC/MS) for the polynuclear aromatic hydrocarbons (PAH). The supporting research emphasizes heterogeneous hydrocarbon processing at high temperatures, especially pollutant formation during heterogeneous combustion. Catalytic exhaust reduction, NOx formation during coal combustion, and diamond film CVD are the topical areas. The catalytic converter program aims to generate the first reliable set of scalar fields under carefully controlled conditions, and use them to test the present widely held beliefs concerning rate laws and model parameters. The refinery gas analyzer will be used to measure the polar and nonpolar noncondensible fuel and product species, to determine transverse profiles of the reaction species at selected axial positions in a metal monolith converter channel. The GC/MS system will be used for PAH species in the exhaust, especially those from alternative fuel formulations. In relation to NOx formation during coal combustion, most of the fuel-N escapes the coal bound into tar with the result that substantial fractions of the volatilized fuel-N can be reintegrated into a carbonaceous solid phase. It is conceivable that the efficiency of NOx abatement under fuel rich conditions is due to the promotion of soot formation, rather than the direct formation of nitrogen from small molecular products such as HCN or ammonia. The final project is directed at diamond deposition from plasma- processed hydrocarbon gases, and from the post-flame gases of an oxyacetylene torch. It is suspected that the gas phase chemistry when methane is abundant yields significant amounts of PAH, and that the PAH is necessary for the formation of an amorphous carbon interlayer. The chromatographs will be used to analyze the noncondensibles and PAH in the effluent, to clarify the connections between the interlayer and the rate of diamond deposition. The two gas chromatographs to be purchased are essential for experimentation in combustion, pollution sciences, and high temperature materials processing. Together with the existing capability for very heavy hydrocarbon liquids analysis using high performance liquid chromatography, the new systems will enable determination of virtually all stable species associated withthe three research areas described.